CRCNS 2015 PI Meeting

The PIs and Co-PIs of grants supported through the NSF-NIH-ANR-BMBF-BSF Collaborative Research in Computational Neuroscience (CRCNS) program meet annually. This eleventh meeting of CRCNS investigators brings together a broad spectrum of computational neuroscience researchers supported by the program, and includes poster presentations, talks, plenary lectures, and workshops.
The meeting is scheduled for September 28-30, 2015 and is hosted by the University of Washington.